Special Project: U.S. Attendance at the 14th IFIP World Computer Congress

CDA-9628591 Aiken, Robert Association for Computing Machinery Special Project: U.S. Attendance at the 14th IFIP World Computer Congress This award provides partial support for 20 representatives from the U.S. to attend the 14th IFIP World Computer Congress, in Canberra, Australia, September 2-6, 1996. The International Federation for Information Processing (IFIP) is a multinational federation of technical organizations concerned with information processing. The Federation on Computing in the U.S. (FOCUS), a joint activity of the ACM and the IEEE Computer Society, serves as the U.S. representative to IFIP and is administering this project. The participants in the project are selected on a competitive basis by a committee of reviewers, with emphasis given to young researchers doing outstanding work and to applicants who have been accepted to present papers or are otherwise significantly involved in the conference.